Integrating Research into Chemistry Curriculum

Abstract 0811860

Claflin University is acquiring a powder x-ray diffractometer and a UV-Vis spectrophotometer for integrating exploration and research-based instructions into the chemistry curriculum and enhancement of undergraduate research as a means to increase the number and improve the training of undergraduate students in chemistry. The project is enhancing the analytical instrumentation facilities at Claflin University’s chemistry laboratories, providing increased and improved opportunities for students to have an understanding and appreciation of current developments in research and related technologies.

The PIs are working to establish and maintain a strong research infrastructure and to incorporate inquiry-based approaches to upper level chemistry laboratories, which include physical chemistry, analytical chemistry, instrumental analysis and organic chemistry. This effort also targets meet the ACS certification sustainability requirements (the program is already ACS certified). The addition of the powder x-ray diffractometer and the UV-Vis spectrophotometer also work to complete our optical spectrophotometers and solid state analysis capabilities, and to assist us in keeping pace with the advances in the field.